Society of Physical Regulation in Biology and Medicine Conference, Charleston, South Carolina

0096955
Parsley
Support is being provided for the travel expenses of speaker participants of four mini-symposia presented at the 20th annual meeting of the Society of Physical Regulation in Biology and Medicine, held in Charleston, SC, January 10-14, 2001. Two of the mini-symposia are in the newer areas of investigation Tissue Engineering and Nanotechnology in Medicine and the other two symposia address advanced topics in Biomechanical Force and Cell Regulation and Mechanical Control of Cardiovascular Cell and Muscle Processes. The topics included in the symposia are of growing importance in biomedical engineering research in fostering the development of such new medical technologies.

Post-conference publication of manuscripts from the mini-symposia is to be made in a special volume of the journal Biomedical Micro Devices (Kluwer Publishers).